Travel Grant for the First International Workshop on Thermal, Fluid and Interfacial Phenomena in Physico-Chemical, Materials and Bio-Processes

Funding will be utilized for travel of US scientists and researchers to present papers at the first international workshop and conference on thermal, fluid and interfacial phenomena in physico-chemical, materials and bio- processes. The workshop will address problems on interfacial stability and transport with applications to materials and bio-processing such as electrodeposition, crystal growth, jetting, lung and corneal transport, etc. The conference will be held in Giessen, Germany, between September 12 - 16, 2001, and the proceedings will be published. The support is meant for graduate students and post-doctoral scientists as well as non-tenured faculty in the early stages of their careers.